Algebraic Geometry and Infinite-dimensional Spaces

Kapranov proposes to study infinite-dimensional spaces such as spaces of paths
by using algebro-geometric techniques. The traditional analytic approach to such
spaces leads to many difficulties. The algebro-geometric approach has the
advantage of bypassing these difficulties and at the same time preserving and
in fact emphasizing the main conceptual results of the study. He proposes to
develop an approach to Floer cohomology based on the algebro-geometric
concept of an ind-scheme. In fact, the very definition of an ind-scheme (known for
some time) is not far removed from Floer's ideas about cycles of ``semi-infinite"
dimension. Kapranov proposes to apply this approach to various spaces of
formal paths and loops in finite-dimensional varieties. Among other things, he
proposes to understand the elliptic cohomology theory by using these spaces,
in particular to relate the elliptic cohomology and the derived category of
coherent sheaves, two objects of recent interest.
By studying various "anomalies" on such infinite-dimensional spaces, Kapranov
proposes to prove a new Riemann-Roch type theorem involving families of
real, not complex varieties.

The motivation for study of infinite-dimensional spaces comes from physics
(string theory) where the fundamental object is not a punctual particle but
a string propagating in the space-time. The number of degrees of freedom of
such a string is clearly infinite. But working with infinite-dimensional spaces
is difficult. The usual problems of convergence familiar from multivariable calculus become
in many cases overwhelming when the number of variables becomes infinite.
The algebraic approach proposed by Kapranov
can capture the essense of many problems while maintaining the mathematical rigor and
thus preventing one from making mistakes. One example of such a problem is the
determinantal anomaly: determinants of infinite matrices do not behave as expected
from the finite-dimensional case but obey different rules.
This leads to a wealth of consequences for
the topology and geometry of infinite-dimensional spaces. The algebraic approach
allows one to arrive at and generalize these consequences while minimizing the
considerable effort needed to even define the infinite determinants.